TS: Technician to Support Clumped Isotope Research, Instrument Training, and STEM Outreach at North Carolina State University

This project will hire a new technician who will provide support for the study of ancient Earth’s geological and environmental processes and develop new analyses. The technician will train students and researchers to perform research that uses clumped carbonate isotope geochemistry. This will create a hub for this type of analysis and strengthening scientific resources across the region. This position will also make the laboratory's resources more available for applied research projects from external users. Finally, this work will support public outreach on Earth history and connect local youth to STEM opportunities.

The new technician will contribute to directed research which focuses on resolving the conditions and drivers of changing ecosystem in the past. Specifically, this involves developing better analytical and interpretive approaches for terrestrial geochemistry proxies including carbonate clumped (Δ47) isotopes. Clumped isotope geochemistry is a rapidly growing area of paleoclimatology, because it offers a means to directly measure mineral temperatures and characterize changes in source fluids. This provides information to determine reconstructions of environmental temperatures, sediment burial and maturation histories, changes in water or hydrothermal fluid sources, feedback between tectonic uplift and climate, and even evaluating thermal strategies of organisms. The technician will assist with management and repair of specialized instrumentation, data collection and experimental design for carbonate standard and clumped isotope studies, training students and visiting researchers in isotope systematics and applications, and contributing to public outreach events, thereby contributing to these efforts for both ongoing and future NSF-funded projects. Moreover, the added personnel support from a dedicated technician will enable the laboratory to help serve the scientific goals of dozens of research groups in the Southeastern U.S. and beyond which are devoted to better understanding paleoclimatic, biogeochemical, and depositional processes, and grow the interdisciplinary research portfolio and service-center capacity of the institution.